Acquisition of computers and support for geodynamic modeling within an existing shared UNIX facility

0318105
Roy

This grant support acquisition of new computational equipment in the Department of Earth and Planetary Sciences at the University of New Mexico. Specific equipment will include: 1) a dual CPU Sun Enterprise server; 2) a SunBlade workstation; 3) two dual Intel CPU PC workstations; and 4) a digital linear tape (DLT) storage device. New computational equipment will augment an existing but aging UNIX-based computer network in the department and will be used for research and education in lithospheric geodynamics, gravity modeling and landscape evolution.
***